ITR/AP: Collaborative Research: Exploring the Tree of Life

0121651
Amenta, Hillis, and St. John
Defining and understanding the evolutionary relationships among species is fundamental to contemporary biology and the application of the comparative method in the life sciences. The results of such evolutionary research can be represented by a branching sequence of relatedness among species known as a phylogeny. Because of the geometric resemblance of a phylogeny to the branches of a tree, a phylogeny can be thought of as a tree of life. The proposed collaborative research by biologists and computer scientists at University of Texas-Austin and at CUNY-Lehman College in New York will provide specialized visualization and data mining tools to facilitate creation of a "Tree of Life" for all living organisms on the earth. This includes the development and refinement of algorithms to visualize and analyze multiple complex data sets for large numbers of species. More specifically, this project will: (1) integrate biological data through visualization and clustering techniques developed by computer scientists, and (2) apply these tools to taxa which comprise very large numbers of species with topologically complex and varied tree structures. The interdisciplinary team of biologists and computer scientists will integrate their newly developed software with existing computational tools in systematic biology, and make them freely available to and easily used by the scientific community. The project involves substantive efforts to provide undergraduates and students from under-represented groups with the opportunity to collaborate with scientists throughout the academic year and summer.